Enhancing Interactive Teaching and Learning in the Precollege Classroom

Through this award, the Institute for Chemical Education (ICE) will continue its work to enhance chemical education at all levels by fostering continuing professional growth and developing and disseminating creative "hands-on" teaching methodology. In this project, workshops, evolved over the past three years will be given at five different colleges and universities: University of Wisconsin, Madison; University of Arizona; University of California, Berkeley; University of Maryland; and University of Northern Colorado, Greeley. The following activities will occur at one or more of the collegiate sites during the summer of 1987: Chemistry Fundamentals for teachers with minimal background; Chemistry Supplements for Pre-High School Classes for primary and middle/junior high school teachers to learn how to introduce science to younger children; Chemical Instrumentation to enrich the well qualified teacher's background in modern technological techniques. A total of 360 teachers will benefit from these varied programs. Participants will conduct inservice out-reach activities for peers after the summer experience. During this phase of the ICE project, resource materials developed during the past several years will be edited and published for wide dissemination. Evaluation and assessment of the effects of the project will continue. This project is worthy of support because of its national scope, the collaboration of several universities in addressing a national problem, the apparent success of prior activities supported by ICE, and the attempt to build a national network of precollege and college chemistry teachers to continue fostering excellent chemical education at all levels.